Genetic, Environmental and Maternal Influences on Grasshopper Life Histories

Among the most important features of life histories are the rates and schedules of births and deaths because they determine the "success" of organisms in their environment. In, insects, these schedules are also affected by migration and diapause (the insect analogue of hibernation). Dr Dingle's research is especially concerned with how life histories, including migration and diapause, are influenced by genes and the environment because these factors act in concert to determine rate and direction of evolution. The lesser migratory grasshopper is particularly interesting because it ranges widely both latitudinally and altitudinally. By studying it over an altitudinal gradient from sea level to 10,000 feet it will be possible to determine how natural selection has molded life histories over a wide range of environments. This grasshopper is also interesting because females determine whether or not their eggs diapause, and crowding produces dramatic changes in morphology and development rates. The latter, of course, influences the schedule of births and so affects life histories. Genetic and environmental influences on the interplay of all these factors are the focus of this study. This research also has significant applied aspects. Grasshoppers, including the lesser migratory grasshopper, are notorious outbreak species and periodically produce large populations which devastate crops over wide areas. It is important to understand the genetics and ecology of grasshopper life histories in order to understand why outbreaks occur and to predict where they will occur so that control measures can be instituted.